"Gordon Conference on Population Biology and Evolution of Microorganisms" Plymouth, New Hampshire, July 22-29, 1991.

This award supports a Gordon Research Conference on the Population Biology and Evolution of Microorganisms. This will be the fourth meeting of this Gordon Conference, which has met biennially starting in 1985. This is an interdisciplinary conference that brings together scientists from both population biology and molecular biology.